Overcoming Barriers to Protein Production in Plant Cell Cultures

The objective of this project is to identify bottlenecks in heterologous protein production from transgenic plant cell suspensions, and to develop genetic strategies to overcome these limitations. Three model proteins will be studied. These include, hepatitis B surface antigen, Norwalk virus capsid protein, and human secreted alkaline phosphatase. These proteins will be studied in two host systems, i. e. tobacco and soybean suspension cultures. The Principal Investigators (PIs) will test the hypothesis that transcribed mRNA may have increased opportunities for translation in the late exponential/stationary phase as compared with the exponential growth phase due to competition with endogenous mRNA for translational machinery. If this is true, then inducible expression during the late exponential growth/stationary phase might lead to higher product levels.